COLLABORATIVE RESEARCH: Remagnetization and Orogenic Fluids: Testing the Hypothesis in the Central Appalachians

9814913
Elmore
In a number of orogens paleomagnetic orientations acquired during deposition have been pervasively remagneticized and during tectonic deformation presumably by widespread chemical remganetization as orogenic fluids migrated through the flanking sedimentary rocks. The actual tie between postulated orogenic fluid passage through rocks and change in the magnetic properties of the rock has not yet been established. This project is a geochemical, petrographic and paleomagnetic test of the hypothesis that such migrating fluids caused the observed magnetic overprints in the central Appalachians. Results will place the interpretation of orogenic fluid remagnetization on a firmer theoretical basis and will be useful in reconstructing fluid flows during late Paleozoic deformation in the Appalachians.